SGER: A Mentoring GUI

This project will create, test and deploy a user interface that can flexibly help its users learn content and applications by providing guidance, taking advice, and learning. This new user interface will be created by greatly enhancing the process of framework authoring: the making of projects and applications that allow end-users to make content, e.g. a teacher making a learning project for a child, who will then learn by making a model of an idea, or a new kind of simulation framework for adults, who will need to be helped to learn how to make simulations.

The content and applications will not just provide functionality, but also be able to teach the end-users how to learn and use the new framework, and be able to itself learn about the user's styles and motivations to create the best learning-and-doing environment.

This award supports preliminary exploratory research that will result in scaffolding and a simple prototype, and important preliminary data for a proposed longer-term project.